ITR: Cooperative Wireless Networks

We are in the midst of a new wireless revolution, brought on by
the adoption of wireless networks for consumer, military,
scientific and other applications. Wireless networks are a
collection of terminals, or nodes, that are capable of
transmitting and receiving information to nearby nodes using
wireless access methods. The harsh characteristics of the wireless channel provide the
fundamental challenge for communication between wireless network
nodes. The key to reliable communication over wireless links is the
exploitation of diversity, i.e., observation of the same
information through different fading conditions. While it is
possible to harness diversity by transmitting the same signal at
different times or frequencies, the implied redundancy is costly
from a bandwidth perspective. It has been shown, however, that
introducing additional antennas at the source and/or
destination enables diversity gain without compromise in
bandwidth efficiency. Wireless network nodes may or may not be equipped with multiple
antennas. How then, can they ensure reliable and
efficient communication over the fading wireless channel? In this research, we investigate
novel strategies by which nodes
transmit and receive cooperatively, allowing
exploitation of spatial diversity gain that would otherwise be
unavailable.

The lack of structure in ``ad-hoc'' wireless networks is
advantageous from the viewpoint of flexibility,
re-configurability, and low management cost. The same lack of
structure, however, makes the implementation of cooperative
strategies challenging. It may be difficult, for example, to know
which of the helper nodes have correctly received the message. In
fact, it may be difficult to know which, if any, of the nodes can
be enlisted as helpers. In this research, we solve these problems
through the combination of distributed cooperative coding
strategies, clever protocols, and sophisticated signal
processing techniques. The PIs are leveraging their respective expertise in
space-time coding and blind signal processing to devise
practical strategies for cooperative communication in
wireless networks. In addition, this research investigates the
fundamental limits on the capacity of cooperative wireless
networks through a study of information-theoretic bounds.